Take Another Look

9552565 Osberg The San Jose Children's Discovery Museum will develop an exhibit "Take Another Look." A semi-permanent version will be installed at the Children's Museum and a 600-750 sq. ft. traveling version will be developed and circulated under the auspices of the Association of Science and Technology Centers Traveling Exhibition Service. Consisting of 14 individual elements, the exhibit is to communicate the essential role and significance of observation in the human experience and its more purposive character in science; the role and importance of instrumentation in scientific observation; and the importance to science of observing and interpreting phenomena in different ways. "Take Another Look" is aligned with nationally developed science education goals as outlined in Goals 2000, the AAAS Benchmarks, and with the California's Science Framework. The project targets the adult/child unit (parents and teachers with children age 2 to 10 that they accompany). Particular attention is being paid to reaching traditionally underserved audiences including Latino, Asia, and African American. Complementary materials include a Teacher's Guide, a Family Activities Guide, and a free/low cost "take-away" card with suggested activities and recommendations for other activities. It is estimated that in four years it will reach over two million children and adults both at the San Jose Children's Discovery Museum and host museums of the touring version.